A Biographical Study of General Leslie R. Groves

Dr. Goldberg is continuing his research toward a biography of General Leslie R. Groves, Commanding General of the Manhattan Engineer District. No scholarly biography of Groves has yet been written. All previous treatments of Groves show him "full blown" and unexplained in September 1942 in the office of OSRD Director Vannevar Bush. Dr. Goldberg's study is providing a context for understanding who Leslie R. Groves was, why he was picked to head the atom bomb project and why he was so effective. In addition, this biographical study provides a vehicle for analyzing anew the changing relationship between the military and civilian sectors of the American scientific and technological research communities during and immediately after World War II.